Workshop on Next Generation Research Testbeds

This award is for a workshop to bring together a broad range of networking researchers to discuss the focus, needs, and physical/managerial structures for a new generation of networking research testbeds that w ill enable/enhance cutting edge networking and network-application research over the next decade. The output of the workshop will be a report documenting the discussion and overall recommendations that emerge from the workshop.